Next-Generation Programming Tools

In order to make programming easier, future software development environments will have to raise the level of abstraction at which programmers work, provide them with more and better information about their systems, and handle more of the mundane and mechanical tasks involved in programming. This project is designed to lay the foundations for the next-generation programming tools that will compose such environments. In particular, the project will consider two important tools: one to support design patterns, and another to visualize software behavior. The design patterns tool will let programmers find, create, verify, and edit instances of design patterns in their source code, thus allowing higher-level programming. The software visualizations will enable programmers to quickly define and see visualizations for specific problems that arise in program execution, thus allowing better understanding of the running program.